Representation Theory of Finite Groups

The principal investigator is working in the field of
representation theory of finite groups. Mainly he studies
questions related to the conjectures of Alperin, Dade, and Broue.
These conjectures state that certain invariants of a finite group
and a fixed prime number can be determined by the same invariants
of subgroups which are again related to that prime. The first
conjectures are concerned with invariants that are integers,
whereas the third conjecture predicts equivalences of categories.
The first two conjectures and consequences of the third have been
verified for a convincing number of examples. It is likely that
these three conjectures are consequences of a single fact, object,
theory, or construction which is still hidden. Probably more
important than solving these particular conjectures would be the
discovery of this hidden feature. The principal investigator works
on general ideas of how to approach these conjectures. Graduate
students are involved in this effort by writing computer programs
which will either discard or give more evidence to the
applicability of one of the suggested approaches.

The principal investigator studies representations of groups.
Groups can be viewed as mathematical abstractions of the notion of
symmetry. They are among the most basic notions in many fields of
mathematics and are applied widely, for example in cryptology,
physics, chemistry, and computer science. Representations of
groups are manifestations of a particular type of symmetry on
other mathematical objects, as for example the four rotations and
four reflections, that a square in the plane allows, form a
representation of a group with 8 elements on a two-dimensional
vector space. More specifically, the principal investigator
studies mysterious coincidences in the representation theory of
finite groups which have been discovered about fifteen years ago
but could not be explained so far. This research is not aimed at
immediate applications outside mathematics. However, in the
history of the interplay between mathematics and other sciences,
in particular with physics, it is a repeated pattern that theories
and results which were considered as important within the edifice
of mathematics became precisely what was needed in the other
sciences in order to describe our real world. For example, group
representations which have been studied a century ago became much
later the right tool to describe particles in nuclear physics.